SHF: Small:Testing in the Presence of Continuous Change

Many organizations that develop software are utilizing continuous integration
processes, in which engineers merge code frequently with the mainline codebase,
and continuously regression test it. The pace at which evolution occurs in
such environments, and the numbers of tests that must be run, can be staggering.
To ensure the quality of software in these situations, testing processes need
to adapt quickly to changes in available resources, testing request frequency,
and product release cycles. Tests must be chosen and scheduled appropriately,
tests must be analyzed for robustness, and testing processes must be
appropriately monitored. The proposed work addresses these needs, and by
focusing on software dependability, the work promises to benefit both
producers (i.e., software developers) and consumers (i.e., the public at large)
of software.

This work will create new techniques for scheduling test cases during
continuous testing based on their historical effectiveness, the relationships
between tests and changes, and their potential for execution; these techniques
will also be able to adapt to release practices and environmental changes, and
will be supported by analysis techniques that are efficient enough for use in
CI testing situations. The work will involve studying the effect of problems
related to test design, and developing lightweight static and dynamic
techniques for analyzing test cases and test suites to determine whether they
may be problematic. The work will lead to the creation of new approaches for
test monitoring, and the definition of new metrics that capture test and test
suite attributes and states for the assessment of testing results in continuous
testing processes. Finally, the work will result in the creation of
infrastructure to support rigorous empirical assessments of the techniques
developed.